Conference Grant to Support Student Authors to Attend the 31st North American Power Symposium; California Polytechnic State University, San Luis Obispo, CA; October 1999

ECS-9907242
Shaban

This proposal requests support for a number of electrical engineering students (with a major in power engineering) across the United States to attend the 31st annual North American Power Symposium (NAPS) to be held on October 11-12, l999 at Cal Poly State University, San Luis Obispo, California. Symposium expenses could be a deterrent for graduate students planning to attend the conference.

NAPS is an annual conference, sponsored by the Institute of Electrical & Electronics Engineers (IEEE) and a selected university on the North American Continent. At this conference, university professors and students are encouraged to present the results of their research among colleagus at an early stage in their work.

NAPS participants are from the electrical engineering departments of major universities in the country with research interests in different areas of power engineering, some from the university abroad, and some from industry. NAPS authors are required to attend the conference and present their papers.